SLC Center: Center for Cognitive and Educational Neuroscience (C-CEN)

The Center for Cognitive and Educational Neuroscience (C-CEN) at Dartmouth, under the direction of Michael Gazzaniga and funded under the NSF Science of Learning Program, will bring together the fields of cognitive neuroscience and education. Education changes the brain, and understanding this complex process will be fundamental to creating a science of learning. Based on our understanding of how the brain encodes, stores, and activates knowledge, what are the barriers to learning, and how can ways around those barriers be implemented? What is the brain-basis of core content areas of learning, including language, math, science, and literacy? How do social/cultural cues impact the ability to learn? And how is learning regulated by genetic factors? To explore these and related questions, C-CEN will advance basic discovery in cognitive and educational neuroscience, foster a dialogue between researchers and educators, and create learning deliverables that will enhance and transform education for diverse participants.

The research core of C-CEN will advance basic discovery of the brain basis of human learning by conducting research on (a) core content areas of learning: language, reading, science, and math; and (b) fundamental aspects of learning: transfer of learning , brain lateralization, social aspects of learning, and brain development. This research will be conducted by (a) using multiple techniques including functional Magnetic Resonance Imaging, Near Infra-Red Spectrography, Evoked Response Potentials, genetic and behavioral measures; (b) across several ages, infants, children, adolescents, and young adults, and (c) using multiple contexts including the laboratory, formal classrooms, and informal learning environments.